NUE: Nanotechnology: An Interdisciplinary Approach to Undergraduate Education in Chemistry and Materials Science

This Nanotechnology in Undergraduate Education (NUE) award, funded by the Division of Materials Research, supports Dr. Wayne Jones and Dr. M. Stanley Whittingham in Chemistry and Materials Science at the State University of New York at Binghamton to lead an interdisciplinary effort in Chemistry, Biology, Physics, and Materials Science and Engineering and create a series of on-line modules describing concepts and techniques related to nanotechnology. These course materials are introduced in a number of existing undergraduate courses in order to integrate nanotechnology concepts into the core discipline.

Advanced instrumentation is available to provide remote Internet access to characterization on the nanometer length scale for undergraduate students both on campus and across the country using Internet 2. The project includes a capstone experience for students interested in exploring nanotechnology in more depth. This two-credit University-wide course brings together students in their senior year to explore in more detail the science underlying nanotechnology.